RIA: Semiconductor Quantum Wave Devices

Quantum interference effects have been experimentally observed in semiconductors. Electron waves in semiconductors possess many common characteristics with the electromagnetic waves in dielectrics. Two separate analogies are necessary for amplitude and phase effects in relating electron to electromagnetic waves. These analogies can be exploited for designing electron-wave devices that are analogous to optical wave devices. For these devices to work, their dimensions should be smaller than the electron coherence length. Quantum interference bandpass electron filters, emitter/filters and, electron- wave slab waveguides have recently been proposed. The objective of the research in this Research Initiation Award is to analyze theoretically the potential performance of these structures. Included in this research would be: (a) Modeling of the quantum-mechanical electron waves and electron-wave semiconductor waveguides including the: analysis of the effective mass anisotropy calculation of the waveguide density of energy states, and current flow distributions in the substrate, film, and cove regions. (b) Design of lowpass, highpass, and bandpass electron filters, emitter/filters, and waveguides. (c) Analysis of electron diffraction gratings, electron beamsplitters, electron modulators, switches, and deflectors. (d) The possibility of designing integrated guided-electron wave devices that are analogous to integrated optics devices. Applications of the proposed research include the areas of supercomputers, high speed communications, electron spectroscopy, and other.